Research Experiences for Undergraduates in Civil Engineering

Eight undergraduate students from the Rocky Mountain and Southwest Regions of the United States will participate in a ten week, comprehensive research experience at the University of New Mexico during the summer of 1992. In accordance with his/her interests, each student will participate as a team member in one of the following four research groups: 1) design, construct and operate a small-scale permeable barrier for groundwater aquifer remediation; 2) investigate fracture in rock and concrete using laser interferometry and conduct numerical simulations using an interactive graphical method; 3) construct small scale models of hydraulic structures and test these models in an open channel flow facility; and 4) assist in numerical simulations and experimental observations of granular soil under shear using 2D elliptical disks. The students will become familiar with their projects through early contact with the research faculty. Each student can expect to learn to work independently over the course of the summer, will present a final seminar on the research, and will assist in writing a publication describing the work.